Materials Research Science and Engineering Center on Nanostructured Materials and Interface

9632527 Kuech The Materials Research Science and Engineering Center (MRSEC) on Nanostructured Materials and Interfaces at the University of Wisconsin, Madison supports research in three interdisciplinary groups focusing on film growth by chemical vapor deposition, grain boundaries and current percolation in high-temperature superconductors, and nanostructured magnetic oxides. The first group investigates the fundamental mechanisms underlying film growth by chemical vapor deposition, with a focus on the growth of Si and Ge and their alloys. The second group focuses on the role that grain boundaries and the electronic structure play in determining the critical current density of polycrystalline high temperature superconductors. The third group addresses the fabrication, characterization, and understanding of the properties of perovskite-like magnetic oxides with potential device applications. The MRSEC supports shared experimental facilities for materials research, exploratory research through seed funding, and collaborations with industry and with other universities. Educational outreach programs include development of instructional materials for high school science teachers and outreach visits to local schools. The Center supports 15 senior investigators, 8 postdoctoral research associates, 16 graduate students, 7 technicians or other professionals, and 10 undergraduates. The MRSEC is directed by Professor T. F. Kuech. %%% The Materials Research Science and Engineering Center (MRSEC) on Nanostructured Materials and Interfaces at the University of Wisconsin, Madison supports research in three interdisciplinary groups. The first group investigates the fundamental mechanisms underlying the growth of semiconductor films with focus on the growth of the technologically important materials silicon and germanium and their alloys. The second group focuses on the role structural defects play in determining the critical current density of polycrystalline high-temp erature superconductors. The third group addresses the fabrication, characterization, and understanding of the properties of magnetic oxides with potential device applications. The MRSEC supports shared experimental facilities for materials research, exploratory research through seed funding, and collaborations with industry and with other universities. Educational outreach programs include development of instructional materials for high school science teachers and outreach visits to local schools. The Center supports 15 senior investigators, 8 postdoctoral research associates, 16 graduate students, 7 technicians or other professionals, and 10 undergraduates. The MRSEC is directed by Professor T. F. Kuech. ***